U.S.-Mexico Dissertation Enhancement: Effects of Fire Disturbance Regimes on Pine and Pine-Oak Forest Structures of the La Michilia Biosphere Reserve, Durango, Mexico

9417560 Covington This U.S.-Mexico Program award funds dissertation enhancement research by Mr. Peter Z. Fule, under the supervision of Dr. W. Covington of Northern Arizona University. Their project is designed to determine the effects of regimes of disturbance by frequent, low-intensity fires on the structure of pine and pine-oak forests at a site subject to recurring fires, representative of extensive areas of forest land in the Sierra Madre Occidental Range of northern Mexico. Work on this project will be carried out at the La Michilia Biosphere Reserve in Durango, Mexico, with the cooperation of Dr. Jorge Nocedal, Director of the Reserve. This project is important to both the U.S. and Mexico because it will support the inclusion of disturbance as a key ecological consideration in the management and conservation plans for the forests of northern Mexico, and it will provide a source of experimental data from an actual "natural lab," useful in research, planning, and restoration efforts for the fire-dependent forests of our west coast. ***